Modulation of Calcium Levels by Endogenous Neurotransmittersin Identified Leech Neurons

This research project, under the direction of Dr. Kleinhaus, will examine the effects of two neurotransmitter, serotonin and FMRF- amide, on the intracellular calcium levels in identified nerve cells of an invertebrate model system. There is evidence suggesting that these two neurotransmitters are involved in the regulation of essential behaviors in the leech. These neurotransmitters have been shown to alter the effects of calcium and modulate the excitability of Retzius cells, multifuctional nerve cells that have been implicated in the control and integration of at least two behaviors, swimming and feeding, in this animal. A combination of optical and electrophysiological techniques will be used to monitor the dynamics of calcium concentration in selective nerve cells to establish a relationship between membrane potential and internal calcium level. This investigation will provide additional knowledge regarding the mechanism of action and effects of serotonin and FRMF-amide on the nervous system.